Internet Connection

9626254 Cooper Carlow College requests support from NSF for a connection to PREPNet. This grant will be used to help the institution get access to the Internet. PREPnet, a midlevel network in Pennsylvania, will provide operations management and information services and it provides access to the Internet, a collection of interoperable networks connecting most research and education organizations in the United States. The Pennsylvania college need the Internet connections to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of Carlow College as well as the community in general.